A Rural Model for Connecting Young Scholars

This project will bring 15 high ability and high potential 8th and 9th grade students to Montana State University for science-related career exploration activities. The project begins with a 9-day residential summer workshop of lab and field experiences. It will be followed by a structured computer--network set of activities designed to connect students in their local setting with each other as well as university personnel. Two meetings during the following year will expose these students to established science program for high achieving students in the state. Emphasis will be placed on recruiting Native Americans and women.